Undergraduate Information Systems Security Laboratory

Computer Science (31) This project establishes an information systems security laboratory at Polytechnic University. The primary goal of the project is to assist in meeting the national demand for qualified security professionals that can help meet the security challenges facing our national information infrastructure. This will be achieved by establishing a laboratory that becomes a national model for an experimentation environment providing hands-on experiences in topics related to information systems security at the undergraduate level.

The proposed laboratory supports a pair of project oriented courses; the first an introductory survey course in computer security and the second, a course in network security. The project adapts laboratory and course material from the Information Systems Security Laboratory (ISSL) at Iowa State University which initially started with an NSF-ILI grant and has subsequently been recognized as center of excellence in information security education by the National Security Agency (NSA). ISSL has agreed to help in the adaptation by sharing their experiences and courseware. The two teams will exchange visits to each other's facilities to facilitate the proposed adaptation.

Polytechnic University will establish a Web site which will include curricula, laboratory manuals, and other course materials. The university is committed to maintaining and updating the site after the completion of the project for national dissemination and use of the models that are developed.